Single Node and Multiple Node (End-to-End) Teletraffic Analysis of Connection-Oriented Packet-Switched Networks

9508014 Sohraby Effective teletraffic analysis of communication networks is essential for their successful design and engineering. This project will introduce and examine a new paradigm for the teletraffic analysis of communication networks which is based on a system theoretic approach that is well rooted in the field of control theory. This approach has the following features: 1) it is based on a dynamical system viewpoint for the workload distribution in the system; 2) it provides both exact solution and approximate solution (with less computational effort); 3) it is unifying in the sense that the method is capable of solving most of the proposed teletraffic models in a unique and simple framework, including fluid flow approximations, queues fed with different correlated and bursty arrivals, general Markov chains of M/G/1 or G/M/1 type, etc.; 4) the method can be viewed as a "bridge" between the matrix analytic methods and spectral decomposition techniques where it avoids the need for a large number of iterations (especially in heavy traffic) encountered in the methods of the former type and the ill-conditioned root finding problem (especially when individual source characterization is complex) of the problems of the latter type; 5) the method can be easily implemented using traditional analog filtering theory; and 6) the method can also be implemented using known and effective algorithms extensively used in the field of control theory for the solution of Riccati equations. ***